Oceanographic Instrumentation for the R/V Savannah

A request is made to fund additional and back-up instrumentation for the R/V Savannah. The R/V Savannah is a 92 foot coastal research vessel operated by Skidaway Institute of Oceanography as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The request includes three items listed by priority:

1) Upgrade of Data Acquisition System
2) Sampling components for multi-corer system
3) Acoustic deck unit

Broader Impacts:
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.